The 10th Conference on the Application of Accelerators in Research and Industry, Denton, Texas, November 7-9, 1988, Group Travel Award in Indian and U.S. Currencies

Description: This project supports participation by 10 Indian scientists and one Egyptian scientist in the 10th Conference on the Application of Accelerators in Research and Industry. The conference is designed to review current and planned industrial applications of accelerator developments and emphasizes the many connections between basic accelerator research and applications. Scope: The series of conferences on applications of accelerator technology has grown in importance. The exposure of foreign scientists is important to their countries and helps U.S. scientists and industries in their dealings with these countries.